Ultra-stable Wideband Heterodyne Spectrometers: Molecular Lines from Distant Galaxies

ABSTRACT

Measurements of distant extragalactic nuclei using a prototype spectrometer at the Caltech Submillimeter Observatory have shown that there is a rich field of science awaiting exploration with large ground-based telescopes at near-THz frequencies. Exploration of this regime, however, will require spectrometers with improved stability and bandwidth.

This grant supports construction of a dedicated new instrument that will enable observations of wide, weak, extragalactic lines. Some of the development will be leveraged from SOFIA and FIRST observatories. This effort will concentrate on the components for immediate ground-based instrumentation. Specifically, a 3.5 GHz bandwidth, 256 channel cross-correlator system geared to ultra-stable, submillimeter spectroscopy will be developed and tested. This will require an investigation into the origins of radiometer instabilities, and tests of new wideband heterodyne spectrometer architectures.